Frontiers of Functional Data Analysis

DMS-9971954
PI: Viele

Abstract:
This research focuses on performing functional data analysis, the study of
sets of curves, when the pattern of variation across the population is
complex. Specifically, we focus on three nonstandard patterns. The first is
when some curves have a particular feature while others do not. The second
is when the curves follow a mixture distribution across the population, and
the third is where the curve parameters are not identically distributed,
but depend extensively on covariates.

Functional Data Analysis allows modeling of complex processes in
meteorology, oceanography, medicine, criminology, and other areas.
Realistic modeling of these processes often requires complex descriptions
of variation across the population. For example, if one observes
temperature continuously, one can observe the daily rise in temperature
during the day and the decrease at night. On many days, but not all, this
cycle is partially interrupted by storms. Models for daily temperature must
accommodate this behavior. The proposed research is intended to increase
the flexibility of functional data analysis so that it may provide more
realistic analyses.